Workshop Proposal for an Infrasound Consortium for Applied Research

0333031
Garces

The field of infrasound studies the generation, propagation, and measurement of atmospheric sounds that are too bass to be perceived by human ears. Infrasonic signals may propagate for thousands of kilometers and can be used to study large-scale geophysical processes. Some of the more tantalizing research subjects in the field involve passive acoustic soundings of the atmosphere, investigations on the dynamics of volcanic eruptions, studies of earthquake ruptures, interstellar flux rate assessments from meteor detections, and tracking of hurricanes and tornadoes. This award will support a two-day workshop to select projects and experiments that will best highlight the field's contributions to geophysics. Participants will be invited to provide expertise in the fields of the earth, atmospheric, and ocean sciences and the various technologies that may be integrated with infrasound to produce a greater scientific impact. The outcome of the workshop will be a report with possible proof-of-concept experiments, their cost, and a draft management structure.